Pollen-pistil Interactions in the Genus Nicotiana

The goal of this project is to identify and characterize factors
that contribute to S-allele-specific pollen recognition in Nicotiana alata.
In this species, the S-locus controls intraspecific compatibility. Pollen
is rejected when the S-allele in the pollen is the same as one of the
S-alleles expressed in the pistil. S-RNases control the specificity of
pollen rejection, but other factors contribute to S-allele-specific pollen
recognition in other ways. Our main objective is to identify and
characterize these non-S-RNase factors.
HT-protein is one such factor that appears to be an unstable
component of the stylar extracellular matrix. Antisense suppression of HT
prevents S-allele-specific pollen rejection, but its precise function is
unknown. We propose experiments to determine the abundance of HT-protein
during style development, and why it is so unstable. We have found that two
specific stylar proteins bind to S-RNase in vitro. One is a previously
characterized protein, NaTTS, that is implicated in growth of compatible
pollen tubes. The second, designated p11, has not been well characterized.
NaTTS and p11 are putative non-S-RNase factors that may be implicated in
both pollen rejection and in supporting compatible pollen tube growth. Gel
filtration and protein blot analysis are proposed to determine the molecular
weight and composition of NaTTS/S-RNase/p11 complexes. NaTTS and p11 will
be also expressed in bacteria and then used to test for interactions in
vitro. Antisense methods will be used to determine whether p11 affects
compatible or incompatible pollinations in vivo. To identify new
non-S-RNase factors, we have generated populations that segregate for the
ability to perform S-allele-specific pollen rejection. cDNA AFLP will be
used to screen for new sequences associated with pollen rejection phenotype.

The impact of this research will be to provide a better
understanding of the genetic mechanisms for pollen recognition and
rejection. This is of practical significance to biotechnologists who wish
to manipulate plant breeding behavior.